U.S.-U.K. Cooperative Research: Nuclear Structure Studies inthe A=130 Region

This award will support collaborative research at the Daresbury Laboratory in the United Kingdom between Dr. David B. Fossan, Nuclear Structure Laboratory, Physics Department, State University of New York at Stony Brook and Professor P.J. Twin, Department of Physics, University of Liverpool. Both the Stony Brook and Liverpool research groups have been involved in closely related spectroscopy research programs and have carried out complimentary work on the extraction of nuclear structure properties. The Daresbury Laboratory has two unique experimental facilities that have been effectively used in conjunction with their 22 MV tandem accelerator. The large array of Compton suppressed Ge detectors and the recoil mass spectrometer at Daresbury have led to the discovery of superdeformed bands in 132Ce and in several Nd isotopes, and important structure properties in very neutron deficient nuclei. This cooperative project will focus on nuclear structure studies in the A=130 region, with experiments taking place at the LINAC laboratory at SUNY Stony Brook and the tandem laboratory at Daresbury.